Kinetic and Modeling Studies of Low Pressure CVD Reactor to Establish the Dominent Reaction Regimes

This planning grant, submitted in conjunction with the Minority Research Initiation program of the NSF, is to define reaction mechanisms through laboratory experimentation and mathematical modeling, and thereby determine the contributions that gas phase and surface reactions can make in controlling thickness and uniformity in low pressure chemical vapor deposition (LPCVD) processes. The LPCVD process has the capability to deposit films of good thickness uniformity. This feature makes LPCVD a most attractive process to be used in step coverage for integrated circuit applications. The transport phenomena effect on deposition rates (thickness) and uniformity can be determined if the reaction kinetic effects are better established.